Laboratory for Robot Vision

A robot vision laboratory is being developed that will become part of the curriculum for robot vision and robots in manufacturing. The laboratory is a collaborative effort that will teach undergraduate students in the electrical engineering and manufacturing engineering technology programs the principles and the applications of robot vision. The laboratory consists of five workstations involving an image processing unit, a camera, a TV monitor, a personal computer, and a robot. The interdisiplinary project will help create an environment for interdepartmental cooperation to help students master the concepts in the design of digital control systems, digital signal processing, and manufacturing system integration. This project is being matched by an amount greater than the award.